Mathematical Sciences: Commutative Algebra

The principal investigator will pursue research in commutative algebra on graded rings and local rings and their singularities. Topics include Hilbert functions, Hilbert polynomials, birational extensions and formal fibers. The work has specific applications to algebraic geometry, particularly to the problem of resolution of singularities. This is reasearch in the field of algebraic geometry, one of the oldest parts of modern mathematics, but one which has had a revolutionary flowering in the past quarter-century. In its origins, it treated figures that could be defined in the plane by the simplest equations, namely polynomials. Nowadays the field makes use of methods not only from algebra, but from analysis and topology, and conversely is finding application in those fields as well as in theoretical computer science and robotics.